Travel Support for the 2010 IEEE International Symposium on Performance Analysis of Systems and Software

This proposal seeks travel support for the 2010 IEEE International Symposium on Performance Analysis of Systems and Software to be held on March 28-30, 2010
in White Plains, NY.
The ISPAS'10 student travel scholarships will be used to target students that are typically underrepresented at computer science conferences.
The PIs are requesting funds to cover expenses of up to 20 US-based students and junior faculty with no NSF travel support.